Atomic Ionization/Recombination Phenomena in Plasmas

9321329 Weisheit The program focuses on a variety of atomic processes related to ionization and recombination events in plasmas. Emphasis is placed on phenomena that occur in dense plasma environments, high magnetic fields or intense radiation. The research is relevant to a better understanding of laboratory and cosmic plasmas, X-ray lasers, quasars, stellar atmospheres and certain fusion experiments. ***